Strategic Self-Presentation of Emotion

This research will investigate: a) the attributions people draw about others based on the emotions those others express, b) how people's behavior toward others is influenced by the emotions those others express, and c) whether and, if so, when, people will choose to intentionally strategically present emotions to others. Three emotions will be investigated: happiness, sadness and anger. A person's happiness is expected to increase attributions of likableness to that person and to increase compliance with the person. Happiness is expected to be strategically presented to others as an ingratiation strategy when the potential presenter has reason for the other to like him or her and/or a desire for the other to comply with him or her. A person's sadness is expected to increase neediness attributions of dependency or neediness to that person and to increase the amount of help that that person will receive (assuming the other feels some moral obligation to help). Sadness is expected to be strategically presented to others as a supplication strategy when the presented desires help. This may be a more effective strategy in communal relationships (in which obligation to help is high) than in exchange relationships (in which obligation to help is lower). Finally, a person's anger is expected to increase attributions of dangerousness to that person and to increase the amount of others' compliance with that person's desires. This may be particularly true when the potential complier has low power relative to the angry person and when their relationship is a non-voluntary one. Anger is expected to be strategically presented to others as an intimidation strategy when the presenter wants the other to comply, has power over the other and when the relationship is non-voluntary. This research will inform our understanding of strategic self- presentation, as well as increase the body of knowledge related to communal and exchange relationships.